Support of the NRC Committee on Chemical Engineering Frontiers

The National Research Council is preparing a study of the intellectual frontiers now developing in chemical engineering and the opportunities the frontiers present for responding to societal needs. The study is conducted by a Committee on Chemical Engineering Frontiers, which will produce a document outlining research needs and opportunities that will be useful to program officers and administrators at the National Science Foundation and other sources of funds for chemical engineering research. The Committee is composed of about 25 distinguished chemical and process engineers from universities and industry. The Committee is sub-divided into seven sub-panels as follows: Energy and Natural Resources Processing; Biochemical and Biomedical Engineering; Advanced Materials; Chemical Engineering Aspects of Electronic, Photonic, and Recording Materials and Devices; Environmental Protection, Safety, and Hazardous Materials; Computer-Assisted Process and Control Engineering; and Surface and Interfacial Engineering.